Response of Anchorage-Dependent Animal Cells to Fluid Shear Stress

Recently, there has been increased interest in growing anchorage-dependent animal cells for the production of medically important biochemicals as well as for the possible use of these cells in artificial organs. The interaction of these cells with the in-vitro environment is poorly understood. The objective of this study is to examine the response of anchorage-dependent animal cells to fluid shear stresses. A parallel plate flow channel will be constructed and tested to expose the cells to a well-defined laminar flow field. Cell detachment from the surface as well as nonlethal changes in cell behavior and metabolism (such as increased permeability and morphological changes) and protein secretion will be examined as a function of the magnitude and duration of the applied shear stress. The effect of the surface on cell detachment and other changes in cell behavior will be examined by studying the response to shear stress of cells grown on a variety of natural and synthetic surfaces.